NSF Workshop on Information and Communication Technologies for Sustainability (WICS)

This project involves a workshop called "Workshop on Information and Communication Technologies for Sustainability" (WICS)to be held on June 27, 2011 in Salt-Lake City, Utah along with the annual SECON conference. The workshop is expected to identify new areas where researchers working in communications technologies for sustainability and thereby open up new areas of research.